Active Multi-Disciplinary Learning in Science, Technology, Engineering, and Mathematics Fields

This project is providing fifteen S-STEM fellowships annually to academically talented, but economically and/or educationally disadvantaged students during their initial year of study. Mentoring and additional student support activities are provided within the framework of the institution's Honors Program that engages students by focusing on current and emerging problems of society. Through a problem solving approach, students are learning to apply knowledge from their major field of study to complex interdisciplinary settings. Recruitment efforts include particular attention to attracting high ability members of underrepresented groups into science and engineering. The institution has signaled its commitment to this project by allocating funds to continue the first year fellowship support during each student's last three years of study.